Conference on the Future of the Internet; September, 1996; Cambridge, MA

This award supports a two day workshop held in September 1996 at Harvard to explore the policies and planning required to continue the viability of the Internet. Participants include key individuals and organizations within and beyond the Internet community, from the U.S. and foreign countries. Papers presented at the conference are on the Harvard web server and published in a book from the MIT Press.